Joint Meeting of Pacific Region Particle Physics Communities

The Division of Particles and Fields will hold its 2006 meeting at the Sheraton Waikiki in Honolulu, October 30-November 3, 2006, with combined participation of all Pacific Region particle physics communities including Australia, Canada, China, Japan, Korea, Mexico, Russia and Taiwan. The meeting occurs just prior to the start-up of the Large Hadron Collider at the CERN laboratory in Europe. Many think the major post-LHC project for particle physics community would be an International Linear Collider. If this is to happen, researchers from all parts of the world, and especially from the Asia-Pacific region will have to establish close working relationships that will be essential for the success of such a huge international undertaking. The goal for this meeting is to bring researchers, especially young researchers, together in a pleasant environment to discuss their work and explore opportunities for future collaboration.